Classical Bases of Resonance Scattering, Fluctuation of S-Matrix Elements, Chemical Bonding, and Nonadiabatic Transitions

9408879 Yuan The quantum ramifications of chaotic scattering in several model atomic and molecular systems is investigated. New mechanisms for the formation of long-lived collision complexes, e- He+ periodic orbits, phase space structures corresponding to chemical bonding and isotope effects on HeRh2+ near the metallic tip of an electron field microscope are studied in using a variety of semiclassical approaches. ***